RII Track-4: NSF: Source fingerprinting of mercury isotopes in thermokarst lake systems

Permafrost soils, which are present across a large portion of the Northern Hemisphere, are a vast reservoir for mercury. It remains unclear to what extent permafrost-derived mercury is available for uptake into organisms and food webs. Accordingly, this research will provide funding for a two-year fellowship to increase the research capacity of a non-tenure track Research Assistant Professor at the University of Alaska Fairbanks (UAF) through visits, training, and collaboration at the United States Geological Survey Mercury Research Laboratory (USGS MRL). This research will investigate the fate of mercury in lake systems along a permafrost gradient through the measurement of natural abundance isotope ratios of mercury in environmental samples. The USGS MRL’s research group is internationally recognized and maintains a state-of-the-science laboratory equipped with dedicated instrumentation for high accuracy and precision measurements of mercury isotope ratios. The lead researcher will participate in extended visits to learn appropriate sampling techniques and collaborate with USGS scientists to analyze environmental samples collected from the northern lake systems. The skills gained during the collaborative visits will benefit UAF and the State of Alaska as they tackle the complex problems associated with climate change. Additionally, the research will fill knowledge gaps related to the fate of mercury released from permafrost.

This Research Infrastructure Improvement Track-4 EPSCoR Research Fellows (RII Track-4) project would provide a fellowship to a Research Assistant Professor at the University of Alaska Fairbanks. This work would be conducted in collaboration with researchers at the United States Geological Survey Mercury Research Laboratory (USGS MRL) in Madison, Wisconsin. Recent estimates indicate that permafrost soils are a significant reservoir of mercury, which is vulnerable to release due to climate change. Thermokarst lakes degrade permafrost rapidly and thus, thermokarst lakes may be particularly important in mobilizing mercury from permafrost stores. The environmental fate of mercury in these systems remains a major knowledge gap. The measurement of natural abundance mercury isotope ratios, which is at the forefront of current mercury research, is a powerful tool for mercury source identification and can provide additional understanding of mercury biogeochemical cycling. To date, most mercury isotope studies have been carried out in lower latitude systems. Thus, there is limited information characterizing the isotopic endmember of permafrost mercury, which would be of great benefit to researchers as they attempt to determine the fate of this potentially important source of mercury to Arctic food webs. The lead researcher will make extended visits to the USGS MRL, where he will make use of state-of-the science instrumentation and learn the appropriate environmental sampling, analytical, and interpretation skills related to mercury isotope analyses. While at the USGS MRL, the lead researcher will also work collaboratively with USGS experts to analyze natural abundance isotope ratios of mercury in samples of air, water, sediment, permafrost soil, and emergent insects collected from thermokarst lakes spanning a latitudinal and thaw gradient. By means of these analyses, the research team will identify to what extent permafrost mercury is entering contemporary thermokarst lake food webs. Results of this research will be communicated broadly. The lead researcher will make visits to an Alaska Native community to discuss environmental mercury research and will disseminate project results in conference presentations and peer-reviewed publications.